NMR Instrumentation for Enhanced Undergraduate Chemistry Instruction

The aim of this project is to improve undergraduate chemistry instruction at Lander College by acquisition of a 60-MHz nuclear magnetic resonance spectrometer. Laboratory courses that will be substantially improved by the incorporation of NMR capability are: introductory organic chemistry, inorganic chemistry, advanced organic chemistry, instrumental analysis, physical chemistry, and undergraduate chemistry research. With the new equipment, students will determine the structures of organic and inorganic compounds, many of which they synthesize themselves; perform quantitative analysis by NMR spectroscopy; determine equilibrium constants and dielectric constants; and investigate dynamic structure of molecules and chemical kinetics utilizing the variable temperature capability of the new instrumentation.